Minority Postdoctoral Research Fellowship

This applicant will study the development of transplanted immature neurons (nerve cells) in rodents. During development of the central nervous system, neurons must migrate from the site where they are formed to the appropriate place in the brain, and establish very precise connections to other neurons both within and outside the immediate vicinity. Specifically, she plans to study the integration of donor neurons into host brains that have been made neuron-deficient. This work is planned to take place in the laboratory of Dr. Jeffrey Macklis at Harvard University.